Software Development for Neural and Behavioral Research

Software will be developed that provides experimental control of stimulus display and data acquisition in neurophysiological and psychophysical investigations of visual processing. This software is being developed for three main reasons: (1) to take advantage of advances in computer technology that facilitate the development of such systems, (2) to incorporate an extensive library of low- level visual display drivers that have been developed at NYU over the past five years, and (3) to incorporate modern design concepts into the software. The software is expected to provide the basic experimental control program for the next 5-10 years for the research group involved in this proposal. In addition, a key design feature of the software system is portability, with the goal of freeing its general structure from dependance on a specific processor architecture or on a particular set of input and output devices. The common theme of the research that will initially use the newly developed software is that it relies upon computer controlled generation and display of visual patterns, either on monochrome or color monitors along with the collection of stimulus-evoked behavioral and neural responses. Although the initial effort will concentrate on the generation of software for visual experimentation, the design of the system is by no means limited to this area, and adaptation of the general control structures to a wide range of neural and behavioral experiments should be straightforward.